Improved Access to Gravitational-Wave Data

Gravitational-wave astronomy is one of the most rapidly evolving fields in astrophysics. Over the past ten years, NSF's LIGO observatory in the United States, along with Virgo in Italy and KAGRA in Japan, have begun to observe gravitational waves from mergers of black holes and neutron stars for the first time. These discoveries enable us to study the population of black holes in our universe, learn about fundamental particle physics through the study of the dense interiors of neutron stars, test general relativity as never before, and investigate a range of other topics. Data from LIGO, Virgo, and KAGRA are made available to the scientific community and the public through the Gravitational Wave Open Science Center (GWOSC) at gwosc.org. This award supports data, online courses, software tools, workshops, and documentation available through GWOSC. GWOSC resources have been cited in over 1000 scientific publications, and the website supports over a million gravitational-wave data file downloads in a typical month. These resources are enabling scientific discovery and helping train the next generation of scientists.

This award funds two activities that will improve public access to gravitational-wave data. The first project is to modernize the user interface to data from LIGO, Virgo, and KAGRA. Work under this award will maintain and enhance the GWOSC website for larger sets of discoveries from upcoming data releases by improving data discovery tools, adding events from upcoming observing runs to the online catalog, and implementing a content management system to make documentation easier to search and easier to manage. For the second project, this award will support two Gravitational Wave Open Data Workshops, one in each year of the award. Following each workshop, software tutorials and video lectures are posted to a free online course, creating opportunities for thousands of students to learn gravitational-wave data analysis at any time throughout the year.